Dissertation Research: Ecological and Economic Changes in Madagascar

This dissertation research project will support a student's field research in Madagascar for a period of a year on how primitive agriculturalists change their physical environment, which is a rain forest. The student will work with local experts to study the farming and marketing activities of two communities to understand the reasons for the farmers' decisions which impact the rain forest environment. Methods will include participant- observation, interviewing, and formal surveys. A computerized spatial database is being used to relate the motive forces of farmers to place-specific, documented environmental changes. This research is important because the degradation of the rain forest environment is one of the most significant ecological facts of life in the modern world, with implications for societies far removed from the specific forest locations. Any increase in our understanding of how and why the forests are destroyed, and how humans interact with the changing forest, can help us control this destruction in the future.